ABR: Toward Seismic Tomography Based Upon Adjoint Methods

The primary goal of this project is to use seismic data to image Earth
structure and seismic sources based on modern numerical methods and
imaging techniques. We will further develop and enhance software for the
simulation of 3D seismic wave propagation, with a particular emphasis on
computing on Graphics Processing Units, rather than traditional Central
Processing Units, potentially providing an order of magnitude increase
in simulation speed. The broader impacts of the proposal include
open-source software packages for the simulation of seismic wave
propagation. Simulations based on these packages may be used to
investigate seismic hazard and aid in the determination of tomographic
images of Earth's interior and earthquake source parameters. All
software developed during the course of the proposed research period
will be made freely available via the Computational Infrastructure for
Geodynamics (geodynamics.org).

The simulations of seismic wave propagation account for heterogeneity in
Earth's crust and mantle, topography& bathymetry, seismic anisotropy,
attenuation, fluid-solid interactions, self-gravitation, rotation, and
the oceans. The main intellectual merit of this project revolves around
harnessing the power of the forward modeling tools to enhance the
quality of images of Earth's interior and the earthquake rupture
process. The approach is to minimize remaining between simulated and
observed seismograms based on so-called adjoint techniques in
combination with conjugate gradient methods, an approach we refer to as
"adjoint tomography". Specifically, following a successful application
in southern California, we will 1) develop open-source GPU-based forward
and adjoint spectral-element solvers, 2) perform adjoint tomography of
Europe, 3) further develop noise cross-correlation tomography based on
adjoint methods, 4) move towards adjoint tomography of the entire
planet, and 5) extend the southern California and global "ShakeMovie"
cyber infrastructure.